Academic Research Infrastructure: Laboratory for Advanced Communications Systems

9601602 Bergeron, R. Daniel Hatcher, J. Philip University of New Hampshire Academic Research Infrastructure: Laboratory for Advanced Communications Systems This Academic Research Infrastructure award supports the acquisition of high speed networking equipment including wireless and wired networking infrastructure and switches. The research projects supported by this instrumentation include research on local electromagnetic field characterization, testing tools for wireless local area data communications standards, model-based network diagnosis, implementation and evaluation of algorithms for ATM Quality of Service policies, and the design, implementation and evaluation of data parallel I/O using high speed networks and heterogeneous workstations.